Sorting and Intracellular Transport of RNA:Conference June 22-27, 1996, Snowmass, Colorado

9600575 Singer This is an award for partial support of a conference on Sorting and Intracellular Transport of RNA, to be held June 22-27, 1996 in Snowmass, Colorado. The topic is a rapidly expanding area of interest to cell and developmental biologists, and this is the second conference on the topic to be held anywhere. ***